Multiple Frequency EPR/ENDOR Spectrometer System

Funding is requested for a state-of-the-art multiple frequency ESP-300E EPR spectrometer system with X-band capability liquid helium and nitrogen variable temperature systems, a variable temperature goniometer and a microwave counters. This research equipment will be used for several diverse projects. These include: multiple frequency EPR investigations of model heme complexes, bis-histidine coordinated cytochromes b and c, and mixed metal cobalt-substituted hemoglobins; EPR investigations of newly isolated c-type cytochromes and of mutant cytochromes c produced by site-directed mutagenesis; multiple frequency EPR investigations of the molybdenum and heme centers of sulfite oxidase and model molybdenum (V) complexes; EPR investigations of photochemically or electrochemically produced radicals of organosulfur compounds and investigations of copper complexes of organosulfur compounds; EPR studies of the quenching of the intrinsic fluorescence of model membrane-bound peptide or protein residue due to the presence of spin labels on lipids in the model membranes, and the use of EPR to investigate the kinetics of polymerization of model membrane component; and EPR investigation of the kinetics of electron transfer processes involving protein- small molecular and protein-protein systems.